EPSCoR Research Fellows: NSF Investigate multiferroic properties of restacking ferromagnetic V-doped WSe2 bilayer

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at the University of Maine. This work is conducted in collaboration with Dr. Suji Park and Dr. Mingzhao Liu at Brookhaven National Laboratory (BNL). Through the fellowship, the PI will aim to develop a room-temperature two-dimensional (2D) multiferroic system. By using advanced techniques for 2D heterostructure fabrication, a restacked bilayer of 2D layers will be created. Its ferroelectric and magnetic properties will be investigated by atomic force microscopy techniques, including magnetic and ferroelectric force microscopy, and electrical transport properties under electrical gating and magnetic fields. Creating new multiferroic materials that operate above room temperature will enable innovative low-power electronic and spintronic devices. In addition to advancing the exploration of novel materials, the project will contribute to training next-generation scientists and engineers working across multiple fields of materials physics and quantum science.

The project will fabricate R-stacked V-doped WSe2 bilayers encapsulated in h-BN with graphite gating, using dry-transfer techniques. Because V-doped WSe2 exhibits room-temperature ferromagnetism, the R-stacked V-doped WSe2 is expected to retain multiferroic characteristics. The project will perform ferroelectric and magnetic domain mapping using magnetic, piezoresponse, and Kelvin probe force microscopy and correlate the results with magneto-electrical transport. Through the project, the technical transfer of precisely controlled stacking of 2D materials developed at BNL to the University of Maine will facilitate the installation of a new Atomic Sandwiches stacker in a glovebox at UMaine. The fellowship will enable diverse research on exotic physical phenomena in twisted 2D materials and support future research for faculty in materials, chemistry, and physics at UMaine and the state of Maine. The strengthened UMaine-BNL partnership will secure future collaboration and provide students with access to world-class facilities. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF), which supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.